Domestic Politics and International Law

; R o o t E n t r y F 7I C o m p O b j b W o r d D o c u m e n t O b j e c t P o o l 0 7I 0 7I 4 @ ( ! " # $ % & ' ) * + , - . / 0 1 2 3 4 5 6 7 8 9 : ; < = > ? @ A B C D E F G H I F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; e = e j j j j j j j j j : 1 k T 7 : j : j j j j ~ j j j j 9 9511698 Goldstein This is a proposal for two workshop/conferences leading to a book on Domestic Politics and International Law. The conferences will explore the inherent links between domestic politics and international law in an era which nations have agreed to more binding international commitments and rules far more than could be predicted in the Hobbesian state of nature that supposedly characterizes international relations. The objective of the conferences will be to bring together under a common social science methodology to try to enhance systematic understanding of the legalization going on in international politics. The conferences will involve up to 20 scholars from around the United States. The first conference will be exploratory. The second will apply a rigorous research design to book chapter/papers written to the conference theme. **** Oh +' 0 $ H l D h R:\WWUSER\TE MPLATE\NORMAL.DOT S u m m a r y I n f o r m a t i o n ( 9511698 Jennifer Jurek Jennifer Jurek @ 7I @ @ 7I ~ @ F # Microsoft Word 6.0 1 ; j e j ! ! ! K @ Normal a " A@ " Default Paragraph Font j j j j 9 Jennifer Jurek'\\CLM6\SBERPUB\LSS\ABSTRACT\9511698.TXT @Canon BJ-200 LPT1: BJ200 Canon BJ-200 D L f ! h h {g!g! _! d Canon BJ-200 D L f ! h h {g!g! _! d i i i d 1 Times New Roman Symbol & Arial " h % % ~ $ 7 9511698 Jennifer Jurek Jennifer Jurek ;